National Young Investigator Award

9727892 Diamond This award will focus on the metabolic and genetic response of mammalian cells to physical forces such as those encountered in bioreactors. The work is directed at elucidating molecular level events which control mechano- biological coupling. With this understanding, changes in environmental factors will be tested to help eliminate mammalian sensitivities to externally applied forces. ***